Satellite and Radiation Studies of the Southwest-East Asian Monsoon

This research addresses the interaction between cloud systems, land surfaces and radiation within the Southwest-East Asian Monsoon. It represents an ongoing effort under NSF sponsorship to apply satellite radiance and radiation budget measurements to current problems in monsoon science involving both interannual and intraseasonal aspects of monsoon behavior and heat sources and sinks. The foremost scientific objectives of the proposed research are twofold: A) Utilize INSAT geosynchronous satellite measurements to determine how the development and movement of deep organized convection and tropical storms within the Asian monsoon regulate the amplitude and phase propagation characteristics of cloudiness anomalies associated with low frequency intraseasonal oscillations. Investigate how the movement and fluctuations of the predominant heat source regions within tropical storms controls the dimensions, orientation, and amplitude of the Indian Ocean-Western Pacific dipole designating the major source region of low frequency oscillations. Develop medium spectral resolution radiative transfer models, which incorporate INSAT measurements to prescribe cloudiness for parameterized cloud calculations. Diagnose the modulation of the vertical radiative flux divergence profiles fluctuations. Decompose the vertical structure of the low frequency oscillations in conjunction with these profiles. B) With the aid of INSAT and AVHRR satellite measurements, and the TIPMEX-86 surface measurements, show how variations in surface boundary conditions throughout the region of the Tibet Plateau, during the transition into and throughout the course of the summer monsoon, lead to large diurnally forced gradients in the radiative flux divergence profiles. Investigate how the northward penetration of the low frequency monsoon episodes across the Himalayan barrier diminish the role of surface forcing, replacing it with a cloud forced radiation profile structure. This research is important because it has the potential of providing new knowledge of how the Asian monsoon system, the most energetic regional circulation on earth, is related to other global weather and climate systems, including those affecting the United States.